Science and Religion from Galileo to John Paul II: A Critical History of the Galileo Affair, 1633-1992

The Galileo affair raised fundamental questions about scientific fact and methodological principle that continue to our own day. Specific debates about the compatibility of science and religion, the potential tension between politics and scientific truth, and the sometime-inconsistent demands of sceintific research and social responsibility all may be found in this important historical episode. Although there is an immense literature about the galileo affair itself, the full story of its aftermath has never been told. This project will produce a critical history of the Galileo affair from 1633 to 1992, examining both the historical aftermath (which begins with the original affair and ends with Galileo's alleged `rehabilitation` in 1979-92) and the reflective commentary (which encompasses 350 years of interpretation and evaluation). The project will combine historical and philosophical techniques to achieve these ends, drawing upon empirical research, textual analysis, historical interpretation, historiographical reflection and philosophial criticism.